Search for Constitutive Relations for Micromechanics Modeling of Model Nanocrystalline Materials: A Multiscale Approach

===========================ABSTRACT=============================
Nanocrystalline materials with characteristic grain size of 1-100 nanometers
have been synthesized and investigated extensively in the last decade. Small
sized grains and large volume fraction of atoms sitting on grain or interface
boundaries characterize these materials. They exhibit many unusual mechanical
properties, making them by far one of only a few nanoscale material systems
that have potential to be used as large-scale structural material in civil,
mechanical, transport, and industrial applications. However, as the dimensions
of the grain size are pushed down to nanometer scale, the degrees of difficulty
multiply in determining and understanding the mechanical properties and their
relations with microstructures. As a result, quantitative constitutive
relations for various mechanical properties and their relation with
microstructures have not been fully established. This work aims at filling this
gap by searching for micromechanical constitutive relations in nanocrystalline
materials using large-scale atomistic simulations. To achieve this goal, we
plan to perform large-scale atomistic modeling of various detailed
microstructures and their contributions to constitutive relations in nanoscale
environment. And to perform continuum modeling of deformation process in model
nanocrystalline samples. The detailed constitutive relation and microstructure-
property relation obtained from atomistic simulations will be used in corse-
grained modeling. The proposed topics are timely and answers to these questions
are urgently needed for materials and mechanics community. Successful execution
of this proposed work is expected to contribute to establishing systematic
approaches for modeling microstructures and laying a solid foundation for
constitutive modeling of mechanical deformation in nanoscale polycrystalline
materials.